Size-Dependent Surface Chemistry at Nanometer Scale

The Analytical and Surface Chemistry (ASC) program of the Division of Chemistry will support the research program of Prof. Gang Yu Liu of the University of California Davis. Prof. Liu and her students will study the mechanism and kinetic properties of nanografting and use these finding to regulate the outcome of surface reactions and self assembled monolayers (SAMs) formation on surfaces. The experimental approaches developed during the course of this study such as advanced nanofabrication methodology, molecular resolution imaging and structural characterization and qualifications of mixed self assembled monolayers will benefit the fields of nanotechnology and SAMs-based chemistry and biochemistry. The study will provide excellent educational training opportunities for graduate students and postdoctoral trainees in the cutting edge area of nano-scale resolution chemical imaging.